Fabrication of High Tc Superconducting Films Using Super- lattice Techniques

This project will involve the fabrication of high Tc superconducting films using superlattice technologies. This promising method will allow exploration of structures, and offers the possibilities of creating highly oriented films with high critical current densities.